COLLABORATIVE RESEARCH: Complexity and Information in Avian Signals

Drs. Nowicki and Searcy propose to test whether early nutrition affects the
development of song in birds. Song development and production are controlled in
songbirds by a series of well defined brain areas, which develop to a large
extent during the first two months after hatching. In many species, the details
of song are learned during this same two month interval. Nowicki and Searcy
hypothesize that nutrition during this period affects the development of the
song control regions in the brain and consequently affects song learning. As a
test, they will manipulate level of nutrition in hand-reared sparrows during the
first three weeks post-hatching. The sparrows will be tutored with
tape-recorded songs, and the songs produced by these birds as adults will be
recorded. The stressed and unstressed groups will be compared for the quality
of learning, in terms of how faithfully they have copied the notes of the tutor
songs, and for the quantity of learning, in terms of how many songs are learned
per individual. The brains of the two groups will also be compared, for the
size of the song control regions and the density of neurons in those regions.
Finally, the songs of stressed and unstressed birds will be compared in terms of
how well they function on ecologically relevant tasks.

The idea that stress early in life affects brain development and hence learning
ability is applicable to a wide variety of organisms, from birds to humans.
Song in songbirds provides an excellent model system for studying such effects,
in that the neural control, development, and ecological function of the behavior
are all relatively well known. The study will use this system to enhance our
understanding of the effects of nutrition on the development of complex
behaviors.